High Temperature Superconducting Films on Optical Fiber Coated by a Pulsed Laser Deposition Technique

Superconducting thin film coatings on optical fibers could offer exciting technological possibilities. In this proposal the principal investigator will set out to demonstrate the feasibility of coating a non-silica fiber with a high temperature superconducting film using a pulsed laser deposition process developed by him. Once the feasibility is demonstrated he would then like to develop techniques to coat silica based optical fibers utilizing appropriate buffer layers. The idea is unique for novel opto- and electronic applications.